Development of the Path Integral for Time Domain Electromagnetics

9811094
Nevels
The objectives of this proposal are to derive a dispersion relation, conditions on numerical stability and accuracy, and an absorbing boundary condition for the vector path integral time-domain method (PITD) and to explore its stability as an electromagnetic scattering technique. The PITD method is, the first full wave electromagnetic field scattering formulation based on the path integral and also the first complete path integral expression for the electromagnetic field in the time domain.

The path integral time-domain method could be used in the design of numerous products including, high frequency microwave or optical circuitry, antennas and multipath signal analysis for personal communications devices, low frequency well logging tools for geophysical exploration of natural resources, and composite materials and paints to absorb stray electromagnetic fields.
***